Improvement of the Undergraduate Atmospheric Science Curriculum in Georgraphy with Equipment for Real-Time Meteorology

Mankato State University will purchase equipment to use satellite imagery, weather radar data, National Weather Service information, lightning strike data, and local weather data to enhance instruction in several undergraduate courses. These include both large introductory courses in physical geography and weather; and more specialized courses in climatology, advanced weather analysis and remote sensing. Students will have the opportunity to engage in a number of "hands-on" projects that utilize data obtained with this equipment. The lower division courses serve significant numbers of K-12 teacher candidates. Mankato State University will match the NSF equipment grant with an equal amount of funds.